Biophotonics: Cellular Resolution Endoscopic MEMS Imaging Devices

0119494
Wu
The development of a technology for performing endoscopic cellular level imaging inside the body would have a powerful impact on biomedical research and health care. This program is a collaboration between investigators at UCLA specializing in MEMS optical technology and investigators at MIT specializing in biomedical optical imaging. The investigators propose to develop new microscanning MEMS devices and endoscopically integrate them with optical coherence tomography, confocal microscopy, and optical coherence microscopy, creating a new technology for internal body imaging. Vertically integrated studies combining novel MEMS device design with biomedical imaging and clinical feasibility studies will be performed.